Enhancement and Dissemination of Virtual PLC for Programmable Logic Controller

This project is developing and disseminating integrated Web-based instruction material (the Virtual PLC) to help overcome the resource limitations that often prevent students from gaining the experience needed to become proficient PLC users. Objectives include the expansion of the graphical environment where users may build and test programs, the addition of 25 more case studies and 10 more laboratory exercises, the extension of the intelligent tutoring system component to teach troubleshooting, and the development of support materials to help instructors use the Virtual PLC. The project includes an effective evaluation effort involving several other institutions, including minority-serving schools and two-year technology programs. The dissemination effort includes the development of a Website, demonstration kit, textbook, and workshops.